Topics in Algebraic Design Theory

The project addresses several problems of central importance
in the areas of designs, codes and association schemes. The
emphasis will be on the use of algebraic and number theoretic
methods in the above areas. Topics of the proposed research
include Smith normal forms of subspace-inclusion matrices (q-analogues
of the subset-inclusion matrices); connections between difference sets and
maximal arcs in projective spaces; strongly regular graphs, two-weight
codes and association schemes. Number theoretic tools, such as Gauss and
Jacobi sums, have been used with success by the PI and others in all of the
afforementioned topics. It is expected that deeper p-adic number theory
and representation theory of the general linear group will be necessary in
the further investigations of these topics.

Combinatorial designs first arose in recreational mathematics problems,
such as Kirkman's 15 schoolgirls problem, and later in the design of
statistical experiments. They found many applications in coding theory,
finite geometry, cryptography, computer science, and electrical engineering.
Designs and codes are intimately related. Many efficient error-correcting
codes are constructed from designs. These codes are used nowadays in our
daily life, for example, in CD players, high-speed modems, and cellular
phones. This proposal investigates several problems in the interface of
designs and codes, and gives summer support for a graduate student who will
study and work in the areas of design theory and coding theory related to the
above mentioned applications.